Experiments at the Quantal/Classical Interface

The goal of this research project is to gain an increased understanding of the behavior of simple quantal systems whose classical counterparts are chaotic. This will be done by carrying out different sets of experiments in close concert with collaborating theorists. One experiment will study the response of hydrogen atoms in highly excited states to strong, non-perturbative external fields that are near or above the threshold for ionization. A second will use the polarization of the driving field to test theoretical predictions about the dimensionality dependence of different strong-field phenomena.